MRSEC: The University of Maryland Materials Research Science and Engineering Center

The Materials Research Science and Engineering Center at the University of Maryland carries out nationally recognized fundamental research on surfaces and interfaces of materials with potential impact on the next generation of opto- and nano-electronic devices, and on complex oxides with potential applications in memory, switches and sensors. The research is closely integrated with a continuing educational outreach program that has a direct impact on the education of a diverse population of K - 12 students and teachers. The Center is expanding support and customer base for its shared facilities by direct interactions with the new University of Maryland Center for Integrated Nano-Science and Engineering (M-CINSE).